Some Analytical Aspects of the Theory of Integrable Systems

Abstract
Its

The research project is focused on the analytical aspects of the theory
of integrable systems related to the Riemann-Hilbert and isomonodromy
methods. The problems under consideration include: (a) the investigation
of the double scaling limits in the theory of random matrices and
orthogonal polynomials and their applications to the two-dimensional
quantum gravity and enumerative topology; (b) the asymptotic analysis
of the Toeplitz and Fredholm determinants and the multiple integrals
associated with the correlation functions of exactly solvable quantum
field and statistical mechanics models; (c) the related aspects of the
global asymptotic analysis of the solutions of integrable differential
equations of the Painleve' and KdV types.

The theory of integrable systems is an expanding area which plays an
increasingly important role as one of the principal sources of new
analytical and algebraic ideas for many branches of modern mathematics
and theoretical physics. At the same time, it provides an efficient
analytic tool for the study of some of the fundamental mathematical
models arising in modern nonlinear science and technology.
Specifically, the research directions indicated above deal with the
mathematical models which form the theoretical basis for the following
fields: condensed matter, high energy and plasma physics, nonlinear
hydrodynamics, high-bit rate telecommunication systems, and information
science. A special attention in the project is given to the analysis
of the distributions of random matrix theory which govern statistical
properties of the large systems which do not obey the usual laws of
classical probability. This kind of systems appear in many different
areas of applied science and technology including heavy nuclei, polymer
growth, high-dimensional data analysis, and certain percolation
processes. Simultaneously, the random matrices are playing increasingly
important role, as an extremely powerful analytic apparatus, in several
pure theoretical domains such as the string theory, enumerative topology
and certain fundamental aspects of number theory.